TC: Large: A Formal Platform for Analyzing Internet Routing

Trustworthy Reactive Routing Systems

Warren A. Hunt, Jr. and Sandip Ray
Department of Computer Sciences
University of Texas at Austin

{hunt,[email]

Reactive concurrent systems, such as routers, consist of a number of
interacting processes that perform non-terminating computations
while receiving and transmitting messages. The design of such
routing systems is error-prone, and non-determinism inherent in
concurrent communications makes it hard to detect or diagnose such
errors. Our effort will develop ACL2-based tools for ensuring
trustworthy execution of large-scale reactive routing systems.

We aim to develop a scalable, mechanized infrastructure for
certifying correct and secure execution of reactive routing system
implementations through: a generic framework for modeling and
specifying systems at a number of abstraction layers; a
compositional methodology for mathematically analyzing such models;
and developing a suite of tools and techniques to mechanize and
automate such analysis within a unified logical foundation. Our
research exploits ACL2's general-purpose reasoning engine while
augmenting the tool suite with a streamlined modeling and
specification methodology. We will develop a collection of targeted
tools for verifying safety, liveness, and security properties of
such systems while staying within a single logic and proof system.

To facilitate verification of correspondence between protocol
layers, we propose to enhance ACL2's reasoning engine with automated
verification tools based on advances in BDD- and SAT-based
techniques. The invention and proof of inductive invariants is one
of the most time-consuming activities in reactive system
verification, and we will integrate into ACL2 a general-purpose
symbolic simulation capability; this technique can symbolically
simulate system models over a large number of computation steps,
thereby often obviating the construction of single-step inductive
invariants. The expected results will help automate the mechanical
verification of reactive systems such as routers and CPSs.